DISSERTATION RESEARCH: Hedyotis L. (Rubiaceae) in Asia: Phylogeny, Character Evolution, and Biogeography

The plant genus Hedyotis is a group of nearly 180 Asian-Pacific tropical species in the plant family Rubiaceae (the coffee family). Hedyotis and its related genera are currently taxonomically ill-defined groups. Hedyotis exhibits high levels of species endemism, with many species occurring on a single island or mountain, and its closest relatives occur in Africa and America. Additionally, some of the island and high elevation species in the Hedyotis-Oldenlandia complex have evolved from herbaceous ancestors into small trees. This is known as secondary woodiness, and is often specific to islands or island-like habitats. By building a phylogeny using DNA and morphological data, this project aims to improve the classification of the group, investigate broader issues of ancient dispersal patterns, and examine the evolutionary development of secondary woodiness in the Asian and Pacific species.

This project will resolve the classification of the fourth largest plant family (Rubiaceae), and improve plant collections and botanical knowledge from five under-collected biodiversity hotspots. Additionally, this research will build partnerships with international institutions in six countries, foster collaborations between scientists, and train students in phylogenetics, botany, and taxonomy.